X-Ray Studies of Spatial Coherence

Between the extremes of perfect crystallinity and complete disorder there are a number of interesting systems. In this proposal, they discuss two such problems which have the common feature that the partial degree of spatial coherence is important in understanding the physical behavior. 1) Interest in quasicrystals has recently grown, due to the discovery of new materials which are much more highly ordered than previously known samples, raising important new questions about the atomic structure and disorder in these materials. In particular, they will determine the phase diagrams and diffraction lineshapes of quasicrystalline alloys. 2) They will study the growth of atomic layers and epitaxial interfaces on surfaces, with an eye to understanding whether there are kinetic universality classes that govern scaling behavior. Both of these research topics are well matched to the experimental techniques of high-resolution X-ray scattering.